Acquisition of High-Resolution, X-ray CT Facility for Quantitative 3-D Imaging of Materials and Processes in Engineering and Natural Science

NSF #9977180

PI: A.S. Grader

Institution: Penn State U.

Drs. Grader and Halleck request funds for the purchase of a computer-aided X ray
Tomography apparatus. Members of the team have experience in this technique since the institution currently operates an older version of the proposed purchase. This proposal is
well-written. The team explains clearly the limitation of their current facilities, how sample chambers will be constructed to accommodate a number of dissimilar applications, and the different parts of the equipment. There is a rather large number of projects described within the space limitations imposed by NSF program guidelines. Still, this reviewer felt that a good job was done in terms of describing, in nearly every sub-project section, the potential of the X-ray CT instrument for each application. In summary, some level of funding is recommended.